Travel: NSF Student Travel Grant for the 2026 Association for Computing Machinery Special Interest Group on Data Communications Conference (ACM SIGCOMM)

This proposal seeks to fund US-based students to attend the 2026 Association for Computing Machinery Special Interest Group on Data Communications Conference (ACM SIGCOMM), held in Denver, Colorado on August 17-21, 2026. 2026 ACM SIGCOMM, is the flagship annual conference of the ACM Special Interest Group on Data Communication that attracts high-quality, forward-looking research contributions and provides a vibrant forum for technical and professional exchanges. 2026 ACM SIGCOMM, will expose selected students to cutting-edge developments in the field and enable interactions with world-leading researchers. Students will gain feedback on their ongoing work, broaden their academic perspectives, and build lasting professional connections.

This project supports students from US universities to attend the 2026 ACM SIGCOMM conference in person. Students will have the opportunity to present their work and be exposed to state-of-the-art developments in the field. They will also have the opportunity to interact with peers from institutions worldwide, meet with senior researchers, and participate in discussions that are likely to shape the future of the field. This grant will support students who will benefit from attending this conference while Priority will be given to first-time attendees.